Collaborative Research: Determination of Time Dependent Velocity and Velocity Gradient Tensor Fields for EarthScope

0545519
Bennett

The overriding-objective of this project is to use Earthscope data to
determine a high-precision, high resolution, four-dimensional image of
crustal deformation for the North America continent on time-scales of days
to decades, and spatial-scales of kilometers to thousands of kilometers.
We are pursuing this goal by analyzing continuous GPS data from Earthscope's
Plate Boundary Observatory (PBO) facility, and by expanding upon past
experience in the analysis and modeling of plate boundary-scale crustal
deformations to better account for time-dependence of crustal motions. The
fundamental objective of developing methods to realize four-dimensional
solutions of the velocity gradient tensor field will be achieved prior to
the full implementation of Earthscope. It is a primary goal to develop a
tool that the community can use for future analysis of Earthscope data as
the project matures.